Narrow-Banded Radiative Properties and Heat Transfer Models for High-Temperature Combustion Gases

This research program will continue and complete an experimental investigation of the radiative properties of high temperature combustion gases, particularly CO2 and H2O. Existing property data for these gases have an average uncertainty of plus/minus 30% and may be in error in some cases by as much as 70%. The PI will use a unique isothermal high-temperature gas column and an FTIR spectrometer to ensure better spectral resolution than previous high temperature measurements. The potential impact is a significantly improved capability to make radiative heat transfer calculations in arbitrary combustion gas/particulate environments, including combustion chambers and furnaces, fires, and propulsion systems, and therefore improve the performance and design of these systems.